Intrazeolite Electron Transfer

This Research Planning Grant project is in the broad area of materials chemistry and in the subfields of electrochemistry and heterogeneous catalysis. During the tenure of this eighteen-month standard grant, Professor Collinson and her students at Kansas State University will undertake a fundamental investigation of intrazeolite electron transfer. Special emphasis will be placed on electroactive molecules permanently trapped within the zeolite framework resulting from `ship-in-a-bottle` syntheses. A systematic investigation of variables which influence intrazeolite electron transfer will be pursued, particularly the concentration, distribution, and electron exchange rate of the encapsulated redox centers. Using a suite of electrochemical and spectroscopic probes in combination with synthetic strategies, the electroactive surface concentration and thermodynamic redox properties of encapsulated bipyridine complexes of divalent cobalt and ruthenium will be investigated as functions of site density, electron exchange rate, and zeolite microenvironment. The objective of this Research Planning Grant project is the characterization of intrazeolite electron transfer and an exploration of the practical applications of these unique organized molecular assemblies. This research is important to uncovering applications of these materials in areas such as electroanalysis, electrocatalysis, electronic materials, and optical displays.